Industry/University Cooperative Project: Polarity of Super- critical Fluid Solvents

The objective is to predict the thermodynamic effects of the polarity of supercritical fluid (SF) solvents on extraction selectivities and reaction rate constants. The polarity of supercritical fluids is measured spectroscopically, using dye probes that absorb in the UV-visible region. The strength of specific interactions, such as hydrogen bonding, is measured over a wide range in pressure to identify highly selective pure and binary supercritical solvents. The microscopic spectroscopic data will be used to interpret the selectivity data for sterols and other solutes. The spectroscopic data obtained in this project can be used to design highly selective mixed supercritical fluid solvents for separation processes, and to evaluate potential new reaction processes in supercritical fluids based on the thermodymanic solvent effect.